Geochemistry of Amino Acid Racemization and Geological Applications

The long-term goals of this project are to understand the fundamental mechanisms and kinetics of amino acid racemization reactions through laboratory experiments using simple peptides, to apply amino acid racemization reactions to stratigraphic and geochronologic investigations of Quaternary and Neogene deposits, and to improve age determinations through a better understanding of racemization reaction rates and mechanisms. To accomplish these goals, continued research will be done on the role of calcium carbonate in isoleucine epimerization reactions, in refining the parabolic kinetic model and in developing new approaches to obtain calibration ages for Quaternary fossils using isotopes. Field projects in Bermuda and New Province Island will be completed. Amino acid racemization dating of sediments and fossils has been a significant tool used by field stratigraphers and paleontologists. Successful use of this technique depends on investigation of factors affecting chemical changes in the sedimentary environment and within fossils to establish accurate chronology. Therefore, the research is of major importance to geoscientists.